RNA Polymerase: Mechanism of Action

The focus of this study will be Escherichia coli RNA polymerase (RPase). The interaction of RPase with a wide variety of synthetic templates, native promoters and variant promoters have been extensively studied. However, there are aspects of the thermodynamics and kinetics of the interaction of RPase with promoters have been extensively studied. However, there are aspects of the thermodynamics and kinetics of the interaction of RPase with promoter sites that have yet to be delineated. Stopped- flow kinetic studies on the interaction of a fluorescently-labeled derivative of RPase with promoters offers the range of temperatures. Thus, analysis of the data obtained in these studies will provide detailed information about the molecular events that occur in the enzyme during promoter complex formation and disscociation. Moreover, because the fluorescently attached tag appears to be sensitive to conformational changes in the enzyme, these studies will provide information regarding structural alterations in the enzyme, these studies will provide information regarding structural alterations in the enzyme during open promoter complex formation. %%% Highly specific interactions between proteins and nucleic acids are crucial for a wide range of biological processes such as replication, transcription and translation. An understanding of these processes and of the reasons for their malfunctioning requires detailed information on the structures of the protein- nucleic complexes, as well as the thermodynamics and kinetics of their formation.